Center for Mathematics at Notre Dame

The 2018 Center for Mathematics at Notre Dame program will consist of a series of three programs, held from June 11 to 29 of 2018 at the University of Notre Dame. The three programs include an undergraduate summer school June 11-15, a graduate summer school June 18-22, and a conference on Geometric Representation Theory and Symplectic Varieties June 25-29. The purpose of the program is to introduce students at various levels to important ideas in geometric representation theory, which is an active and important area of mathematics. The goal of the first week is to expose undergraduates to fundamental ideas they would not normally see until graduate school. We will introduce material through a combination of lectures and active learning sessions, with the aim of inspiring students to take advanced courses or reading courses in their future studies. The second and third weeks will consist of a summer school geared towards graduate students in the field, followed by a conference that will present current research on topics developed in the second week. The goal of the second week is to inspire graduate students to explore connections between different areas of mathematics, beyond the level they may see in their own graduate program. We also hope to bring together graduate students and postdocs from different institutions so they can develop productive professional relationships. We note that many students from previous Center for Mathematics at Notre Dame programs have gone on to get a Ph.D. in mathematics, and one invited speaker at our 2018 conference attended our 2011 program as a graduate student.

The goal of the program Geometric Representation Theory and Symplectic Varieties is to bring together researchers working in these areas and make these techniques accessible to a broad audience. The first week will discuss generalized flag varieties and their geometry, as well as the Beilinson-Bernstein correspondence for sl(2). The second week will expose basic ideas from geometric representation theory of symplectic resolutions, and includes lecture series by recognized experts in the field. The third week will consist of an international conference on the program topic, and will present current research on many of the ideas from the graduate summer school. The program website is available at www3.nd.edu/~cmnd/programs/cmnd2018/.